SBIR Phase I: High-Resolution Absolute Linear Encoder Based on a Spintronic Sensing Array

0340145

This Small Business Innovation Research Phase I project will explore the feasibility of
developing an absolute, high-resolution linear encoder leveraging the evolving
technology of spintronics. An array of magnetic tunnel junction sensors will sense
spatially varying magnetic fields generated by lithographically defined micron-scale
current carrying conductors with known geometries. Absolute spatial encoding will be
achieved by a unique mapping of sensor outputs to linear displacement. The proposed device will be
an absolute encoder, which will dramatically reduce power consumption. In the Phase I
work, this idea of a magnetic encoder based on tunnel junction technology will be
brought from a purely theoretical idea to the prototyping stage.

The proposed product will be low-cost, low power, robust, and extremely sensitive compared to existing techniques and thus may create brand new markets for encoder technology. The potential impact of the proposed work will thus be felt in every field requiring precise measurement of displacement, such as personal electronics, robotics, machine tools, wafer handling equipment, scientific and medical imaging, micromanipulation, and motion control systems. The development of an array of magnetic tunnel junctions with submicron resolution will be of great utility in many fields of basic and applied research, particularly in the emerging fields of nanotechnology, biomagnetism, and spintronics.